Hysteresis and Multiple Equilibrium Models of Unemployment

The purpose of this project is to investigate optimizing models of unemployment in which the long-run equilibrium rate of unemployment is not unique. In the case of these models, the equilibrium rate of unemployment actually realized depends on the history of significant events affecting the economy. For example, shocks to the economy such as an oil embargo can affect the long-run equilibrium unemployment rate. Classical economic theory puts great stress on a unique equilibrium for output and employment. Questioning this fundamental proposition by testing these optimizing models may have important implications for stabilization policy. Two types of optimizing models are analyzed in this project. In the first, current unemployment may depend on past events because in response to negative employment shocks those still employed raise wages, making the effect of transitory shocks more permanent. In the second part, a dynamic business cycle model is developed based on difficulties of unemployed workers and firms with vacancies finding one another. It is then shown how this model can replicate co-movements in unemployment and other macroeconomic variables.